Evaluating Adaptive Mobile Systems

Proposal Number: CCR-9901696

Title: Evaluating Adaptive Mobile Systems

PI: Mahadev Satyanarayanan, Carnegie Mellon University

This proposal addresses the broad area of operating system support for quality-of-service(QOS) resource management. It specifically targets systems that exploit this resource management strategy to achieve adaptive behavior in mobile computing. Building on techniques for adaptation recently identified by the research community, the proposed work will develop the critical understanding and the experimental tools and techniques needed to compare the merits of alternative approaches to adaptation. It is likely that the insights offered by such evaluation will lead to the development of new techniques for adaptation. Further, the resource that has dominated attention so far in the research community is network bandwidth. The proposed work will broaden the scope of adaptation to include battery power. Overall, this work will help develop a well-validated and well-accepted set of design principles for mobile computing systems.